Upgrade of the Nuclear Magnetic Resonance Spectrometer in the Chemistry Department

The NMR upgrade provides chemistry students access to current NMR instrumentation early in their academic careers and permits them to use more sophisticated 1D- and 2D-NMR in upper division courses. Students obtain hands on experience with NMR in introductory organic laboratories. The instrument also supports laboratories in physical chemistry, instrumental analysis, and advanced synthesis courses. Faculty from two neighboring institutions are cooperating with the PI to provide students spectra of their samples through remote access to the upgraded instrument facilities.